Shape Reconstruction and Other Inverse Problems

This project seeks to further the state of the art in the numerical solution of linear and nonlinear inverse problems. This is a rich area of research with applications to a great many problems in science and engineering. In particular, one area of interest in the project is the large class of inverse problems involving moments. For instance, the problem of reconstructing the shape of a planar region given its moments is a challenging mathematical and numerical problem, with applications in computed tomography, geophysical prospecting, and thermal imaging, to name just a few.
Generally, the solution of (ill-posed) inverse problems requires the use of advanced computational techniques. For instance, the efficient solution of linear and nonlinear least squares problems, and the concept of regularization of such problems are important in many applications. It is widely recognized that the choice of a regularizing functional and the regularization parameters are both central to the success of a stable numerical inversion approach. The project is concerned with the numerically stable solution of ill-posed inverse problems, particularly those involving moments. A specific problem is that of recovering a 2-dimensional shape from its moments, involving (1) formulation and solution of regularized inversion schemes for the reconstruction of shape from moments, and (2) applying these algorithms to the reconstruction of gravitational anomalies from measurements of gravitational fields